Data Governance to Support an Equitable and Sustainable Blue Economy

This Phase I Convergence Accelerator project aims to improve data governance in the Blue Economy and expand access to essential ocean data. Using a human-centered design research approach, our transdisciplinary project team of attorneys, scientists, and policy experts will create a suite of open-licensed tools and products focused on increasing data stewardship capacity in three groups: start-up and early stage ocean businesses, early career researchers, and coastal communities. While the content and format of the training materials will be shaped by the discovery process, key topics we expect to address include both data ethics and data sharing to support sustainability targets and public decision-making. We will also pilot the materials through a 10-12 member peer learning network. Final materials and summary reports will be publicly disseminated and available under a CCby4 attribution license. Our ultimate goal is to see widespread use of data governance best practices in all ocean sectors, reducing data gaps and bottlenecks and enabling innovations and actions for an equitable and sustainable Blue Economy.